Implementation of SNMP-Based Network Management for the MBONE

ABSTRACT NCR-9417032 PI: Allan Rubens University of Michigan "Implementation of SNMP-Based Network Management for the MBONE" This is a 15 month project to develop, implement and evaluate an SNMP-based management capability for the MBONE, and to develop and distribute some specific SNMP-based MBONE network management tools.